Travel Award Program for Third IBRO World Congress; Montreal, Canada; August 4-9, 1991

The Third World Congress of the International Brain Research Organization (IBRO) brings together outstanding neuroscientists from all over the world for a week of symposia, lectures, and workshops in all areas of neuroscience. It provides a valuable opportunity to promote or enhance international collaborations, to enrich the international dialog on current issues, and to exchange information on the latest techniques in this fast- moving, interdisciplinary field. The Society for Neuroscience will use this support to provide funding for travel to allow young investigators, particularly for minority, women, or other underrepresented groups, to take advantage of this major event to enlarge their horizons and career opportunities.